MRI: Scanning Electron Microscopy - Research And Education In Advanced Materials And Devices

We propose the acquisition of a Scanning Electron Microscope (SEM) to address broad research and education needs in advanced materials science at Texas Tech University (TTU). Several of these projects are directly related to current National Security issues. Numerous ongoing projects in the NTC will benefit from the 1.0-nm high-resolution imaging capability of the requested facility. The large, 200-mm wafer handling capability will help expand our numerous interactions with the microelectronics and micro-electromechanical systems (MEMS) industries. The SEM will also be used in
cathodoluminescence (CL) and electron-beam induced current (EBIC) modes, powerful structural probes with which we have considerable experience. We will use the SEM as an e-beam writer for lithographic patterning of sub-100 nm features. The digital imaging and advanced data analysis capabilities of this instrument are important for quantitative evaluation of inhomogeneous structures, a feature needed in a number of current research projects. None of these capabilities are currently available at TTU. A common feature of the projects will be used to image, understand, and control the structure of materials at the micro- and nanometer level. Given our ties with industry, it is essential for us to educate our students on state-of-the-art instrumentation. The SEM will also be accessible to projects outside of the participants list, including industrial partners. Our TTU recruitment efforts target student groups rich in under-represented talent. Our outside recruitment includes undergraduate and graduate research exchanges, including graduate admission articulation agreements, with universities throughout the State of Texas. These universities represent the evolving demographics of Texas that we are charged to educate. We are engaged in outreach to the local community in an effort to interest elementary, junior high, and high school students in the fields of science and engineering.